Bayesian Analysis and Prediction of Gaussian Random Fields

This project develops methodology for objective Bayesian analysis
of spatial data, both geostatistical and lattice data, that arise in
many of the social and earth sciences, such as economy, epidemiology,
geography, geology and hydrology, as well as computationally efficient
algorithms to perform Bayesian analysis and prediction based on
moderate to large spatial datasets.
On the methodological side, the investigator derives new automatic
prior distributions for the parameters of different kinds of Gaussian
random fields, specified either by their covariance matrices or by
their precision matrices.
The research explores the main statistical properties of Bayesian
inferences based on these automatic priors, such as conditions for
posterior propriety, frequentist properties of parameter and
predictive inferences, and existence of predictive summaries.
A point of particular interest is the study of the pros and cons of
the dependence of these automatic priors on the sampling design.
On the computational side, the investigator derives methods to
approximate these automatic priors distributions, since evaluation
of these priors is in most cases computationally expensive, and
develops new computationally efficient algorithms for Bayesian
inference and prediction of spatial data that would make feasible
Bayesian analysis based on moderate to large spatial datasets.
The methodology proposed in this project serves as an initial step
toward the development of objective Bayesian analysis for spatial
hierarchical models used to describe non-Gaussian data, since most
of these models use Gaussian random fields as building blocks.

The statistical methodology developed during this project has practical
impacts in many social and earth sciences, such as economy, epidemiology,
geography, geology and hydrology, where the collection and analysis of
spatial data have become common tasks.
A paradigm of statistics called the Bayesian approach possesses several
conceptual and methodological advantages when compared to traditional
approaches for the analysis of spatial data, but technical and
computational difficulties that arise during implementation have
hindered its more widespread use among practitioners.
This is particularly so for the analysis of some types large spatial
datasets where current implementations of the Bayesian approach
are too cumbersome or unfeasible to be carried out.
The statistical methodology developed in this project would contribute
to overcome some of these technical and computational hurdles, and
consequently to bridge the gap between methodology and practice for
Bayesian analysis of spatial data.
Graduate students would be engaged in the project, contributing to
their statistical training as well as the enhancement of the Statistics
program at the University of Arkansas.